Toxicology, Insect Specificity, and Chemistry of a Novel Peptidic Insecticide - TMOF

EEC-9903837
Stinner/North Carolina State U.

This project is supported under the initiative on "Research Centers - Small Firms Collaborative R&D." The study concerns joint research between the Center for Integrated Pest Management, an NSF IUCRC, and Insect Biotechnology, Inc., a small firm in Durham, NC. Insect Biotechnology, Inc. (IBI) is developing a new, biorational insecticide technology (Trypsin Modulating Oostatic Factor, TMOF) that is target specific, nontoxic to nontarget organisms, and biodegradable with a short half-life in the environment. In the present study, techniques will be developed to ascertain the presence of the TMOF mechanism in a given insect species, to perform bioassays for the TMOF compound(s) and isolate and characterize the active TMOF chemical species. Chemical compounds designed to mimic these new TMOFs will be synthesized and tested for activity. IBI will assign one postdoctoral trainee to work in the Center. Personnel of the Center and IBI will hold bimonthly meetings. IBI will prepare and assay TMOF peptide analogues. This technology represents a new pest control tool with wide applicability, coupled with environmental and health safety and is a key to management options under the new Food Quality Protection Act regulations being promulgated by EPA. This project offers IBI the opportunity to interact with key corporate members of the Center (and vice versa) to enhance the incorporation of IBI's technology into new management schemes and older mainstream products. The firm's peptide-based technology has a potential to be one of the next generation of biorational, safe insecticides.